CT-T: The Detection and Prevention of Spyware

Steve Gribble
University of Washington
0626367
Panel: P060975
The detection and prevention of spyware

This project is building a foundation for understanding spyware, and
is advancing the state of the art in detecting and preventing spyware
infections. Our research consists of four broad activities:

Measurement: Using a combination of passive network monitoring
and active Web crawling, we are gathering quantitative evidence
about the nature of spyware and its lifecycle.

Early detection: We are exploring schemes to detect new spyware
threats before they have had the opportunity to cause widespread
infection. For example, we are developing techniques for examining
software found while Web crawling to automatically identify
"spyware-like" behavior, or to statically analyze software to look for
code fragments in common with previously detected spyware.

Prevention: To prevent spyware from reaching a computer, we are
augmenting firewall and proxy systems to detect and block spyware
before it reaches its victims. As well, to prevent new code from
gaining a foothold on a PC, we are exploring ways of "locking down"
what code is permitted to execute.

Infrastructure development: To conduct our research, we are developing
new spyware testing infrastructure and workload repositories; our virtual
"spyware laboratory" uses clusters and virtual machine monitors to
enable high-throughput, scalable sandboxing and observation of
malicious code. As well, we are amassing a large collection of
known spyware programs to enable additional analysis.